Sondrestrom Facility--Research, Operation, and Coordination

9317167 Kelly This award will provide continued support for the Sondrestrom incoherent scatter radar and lidar facility at Kangerlussuaq, Greenland (formerly Sondre Stromfjord, Greenland). SRI International will use the funds to continue operating, maintaining, and upgrading the facility and for the scientific research efforts of its professional staff. The Sondrestrom facility is the poleward mainstay of the four-radar chain that extends to the magnetic equator. The requested funding will be used to accomplish the following tasks involving both the radar and lidar systems: (1) Schedule and operate the radar approximately 1200 hours per year, and assist in operating collocated instruments. (2) Assist users in planning, designing, and interpreting results from radar and lidar experiments; coordinate their visits, including obtaining U. S. Air Force and diplomatic approval, and providing logistics support. (3) Maintain and upgrade the radar and lidar facility, and assist in maintaining other collocated facilities. (4) Develop and maintain system software for acquiring, reducing and interpreting data. (5) Carry out World Day observations and specific research programs. (6) Provide World Day data to the National Center for Atmospheric Research database and its users, and maintain a comprehensive data library at Menlo Park. (7) Collaborate with scientists throughout the world in scientific pursuits concerning the geospace environment. (8) Be the liaison between the Greenland Home Rule Government, Danish Commission for Scientific Research in Greenland, and the National Science Foundation on issue related to the Sondrestrom facility. ***